Presidential Awards for Excellence in Science, Mathematics and Engineering Mentoring

Dr. Megginson is an Associate Professor of Mathematics at the University of Michigan. He holds numerous positions with professional national organizations and institutions. He has mentored numerous students at all academic levels across the country. Dr. Megginson s achievements in mentoring include the following: Single-handedly developed, directed and taught in mentoring programs geared to students at various educational levels, as well as to parents and teachers, primarily for Native Americans at the Turtle Mountain Chippewa Indian Reservation in North Dakota. Far-reaching systemic impact on the national level for his work with mathematics curriculum development. His work with the Mathematics Association of America and with the Native American Scientists and Engineers Society has been instrumental in changing the ways in which mathematics is taught to students of color throughout the United States. He has developed mentoring partnerships between the University of Michigan and the tribal college at Turtle Mountain Indian Reservation. Impressive letters of support from a variety of sources. An advocate and role model as a teacher and researcher for his students.